MRI: Acquisition of an automated sequencer for research, training and education at Tulane University and partner institutions

This Major Research Instrumentation award funds the acquisition of a high-throughput capillary sequencer and related instrumentation to enhance research and educational programs at Tulane University and partner institutions in the greater New Orleans metropolitan area. The instrumentation will build on university and departmental strategic investments and major realignments in support of environmental research and educational initiatives. By providing cost effective high-throughput capacity for acquisition and analysis of locus-specific, multi-individual DNA sequence data and multilocus genotype data, the instrumentation will greatly expand shared-use genomics infrastructure available to university faculty, staff and students. The instrumentation will therefore meet steadily growing demands from expanding research and training programs emphasizing use of molecular techniques to address questions in ecology, evolutionary biology, and related environmental science disciplines.

Acquisition of a high-throughput DNA sequencer and supporting instrumentation will serve competitively funded research programs at Tulane University and partner HBCU institutions (Xavier University, Dillard University, Southern University at New Orleans) and institutions serving large minority populations (University of New Orleans). The instrumentation to be acquired includes an ABI3730xl DNA Analyzer with a computer control system and a Franek FT1-B3730X-DA uninterruptible power supply. This instrumentation will support a rapidly expanding user community, including core users undertaking studies on topics such as molecular phylogenetics of freshwater fish and Neotropical birds, the evolutionary ecology of plant-animal interactions, speciation genetics, microbial remediation of contaminants, and the development of genetic methods for environmental assessment.

Ready access to high-throughput capacity will accelerate the pace and scale of research and training at Tulane and partner institutions, which will immediately increase the number of faculty and investigators able to pursue leading-edge research. By helping bridge disciplinary research programs, particularly those in the biomedical and environmental sciences, it will support university-wide and cross-university initiatives to establish national research centers in New Orleans. Expanded capacity also will broaden opportunities for classroom and mentored research training in STEM fields, including NSF-funded programs intended to advance participation of underrepresented groups in environmental biology.